Engineering Research Equipment Grant: Chamber for UHV and Cleaning of III-V Semiconductors

It is proposed to assemble a flexible ultra- high vacuum (UHV) chamber for in-situ etching and cleaning of III-V heterostructures by a variety of techniques, including a unique damage-free supersonic beam process under development by the principal investigator in collaboration with colleagues in the Department of Chemistry and Chemical Engineering. The chamber, which is to be attached to an existing molecular beam epitaxy system, will be used by the principal investigator and his colleagues in the Department of Electrical Engineering and Computer Science research on high performance electronic, opto-electronic, photonic, and quantum devices and integrated systems. In addition to being designed for etching and cleaning inside the UHV environment, this system is designed to enable researchers to mask, etch, pattern, and/or otherwise process III-V heterostructures outside the growth system; to return them to the UHV growth environment; and to then clean, etch, and prepare their surfaces for further MBE growth. It furthermore includes provision to coat the prepared surfaces with arsenic to protect them from contamination during subsequent transfer and storage within the multi-chamber growth system, as well as during removal from the system.